Divided Government in the American States

Divided government occurs when different political parties control the executive and legislative branches of government. Once a rare occurrence in American politics divided government has become increasingly commonplace. As a consequence, the subject of divided government has attracted increasing scientific attention not least because the growth of divided government is variously blamed for budget deficits, policy paralysis, and increasing partisan conflict in government. To date most scholarly attention has focussed on divided government at the national level of American politics. However, the evidence is that the incidence of divided government has increased just as rapidly in the American states and with similar consequences. This innovative project undertakes to examine the nature and determinants of divided government in the American states. In addition to the intrinsic importance of American state government, there are sound scientific reasons for examining divided government at the state level. Although a number of explanations have been advanced to explain the growth of divided government, the national focus of previous research has precluded rigorous analysis since these studies have been limited to a single case. By focussing on divided government in the American states, this project will take advantage of the substantial variance in divided government at the state level to refine and test competing hypotheses. Of particular interest is the hypothesis that divided government is a consequence in large measure of the growing professionalism of state legislatures which has tended increasingly to shelter legislators -- especially members of the Democratic party -- from competitive electoral pressures. If substantiated, this explanation has important implications for the current debate about legislative term limitation. When completed this project should provide much richer and more rigorous explanations of both the causes and consequence of divided government.